Activity-Dependent Mechanisms in the Developing Lateral Geniculate Nucleus

9421983 Ramoa Very recently it was discovered that, before the time that the nervous tissue of the eye (the retina) can respond to light, the nerve cells in the eye generate waves of activity that are transmitted to the cells in the eye's central nervous system target (the dorsal lateral geniculate nucleus). Importantly, the waves of retinal activity are patterned, and they occur during a time of development when the patterns of connections between the eye and the brain are being established and refined. This research is designed to determine whether these spontaneous waves of activity contribute to the definition of the connection patterns between the eye and the brain, as well as how this activity interacts with other central nervous system inputs to the cells in the dorsal lateral geniculate nucleus. It has long been known that patterns of activity generated by light stimuli play an important role in visual system development. This research will provide important information about how intrinsic, spontaneous activity contributes to specifying the connectivity in the central nervous system.